Mathematical Sciences: Curvature, Uniformization, and Pseudoconvexity of Complex Manifolds

Bun Wong will continue his research into compact complex manifolds with negative tangent bundles. Most of the problems to be investigated involve either the topology, the function theory or the algebraic geometry of such manifolds. A major problem is to determine the homotopy type of these manifolds. Another focus of attention will be an attempt to show that these global moduli spaces are natural generalizations of Teichmuller spaces. He will also look at the problem of showing that the Kahler structures with negative bisectional curvature and positive Ricci tensor are exclusive to each other.